Third International Seminar on Bulk Power System Voltage Phenomena, to be held in Interlaken, Switzerland August 23-27, l994

9314821 Fink This Seminar will be a successor to those presented in 1988 (which was jointly sponsored by NSF, EPRI, and the Engineering Foundation), and in l991 (which was jointly sponsored by NSF and ECC, Inc.), and will be addressed to the same audience. However, in view of the strong international interest and participation in the previous seminars (19 in 1988, 18 in 1991, from Europe, Asia, and Australia), it is proposed to hold this next on in Europe. The purpose of the Seminar will be to discuss the best current understanding of voltage phenomena on large scale electric power systems, in a way that will be helpful both to the experienced power system engineer seeking to cope with the new phenomena which his system is experiencing, and to the academic investigator seeking to probe deeper into those phenomena. The Seminar is intended to enhance understanding of the phenomenal involved, to stimulate research and development on algorithmic tools adequate to the needs of the industry, and to encourage advancement of the state of the art in practical applications. A specific emphasis in this Seminar will be technology exchanges between young university professors and post-doctoral fellows, through explorations of basic phenomena and state-of-the-art analytical techniques. This has been a major function of this Seminar since its inception. This is demonstrated by the 1988 and 1991 sessions, with international technical exchanges initiated at and continuing after the sessions, particularly as they have provided opportunities to young investigators. The previous sessions have included participation by investigators from Australia (University of New South Wales), Belgium (University de Liege), England (Imperial College, London), Germany (Aachen University of Technology), Italy (Politecnico di Torino, Universita di Bari), Japan (University of Tokyo, Meiji University,Kawasaki, Hiroshima University, University of Tokyo, Waseda University, South Korea (Seoul Natio nal University), and Sweden (Royal Institute of Technology, Stockholm). In all. over a dozen young graduate students and assistant professors attended these sessions. ***